Mathematical Sciences: Geometry and Topology of Riemannian Manifolds

The proposed research will cover the study of singular spaces in Riemannian geometry. In particular, a continued study of the geometry of Alexandrov spaces relative to the Gromov- Hausdorff limit resulting from isometric group actions. Applications to structural and recognition problems via metric invariants , will be pursued.